Comparative Studies of Great Ape Vocal Behavior

This proposal by Dr.Mitani was award from Rockefeller University as a three year continuing. The P.I. transferred to University of California, Davis after completing the first year of his award. The remaining two increments will be granted to UC, Davis as an continuing renewal